Geometry, Rigidity, and Group Actions

Abstract

Award: DMS-0734851
Principal Investigator: Benson Farb

The conference ""Geometry, Rigidity, and Group Actions"" will bring
together researchers in a cluster of fields related to actions of
lattices in semisimple Lie groups. The subject's roots concern
linear representations of lattices, but developments in the past
two decades have established strong connections with a variety of
other topics, including ergodic theory, dynamics of group actions
on compact manifolds, differential geometry, spaces of
non-positive curvature, geometric group theory, symplectic
geometry, algebraic groups, unitary representation theory,
operator algebras, and group cohomology. Our lectures will
include contributions from all of these areas. We are holding
the conference on the occasion of Robert J. Zimmer's 60th
birthday, in recognition of his work's dramatic impact on the
growth of this area.

The speaker list of this conference cuts across a variety of
closely related areas of mathematics, and will present
participants with the opportunity to learn about recent
developments, important open questions, and the wide variety of
successful techniques that are being applied. New developments
are emerging rapidly and involve ideas from disparate areas of
mathematics, so conferences of this type are necessary to keep
established researchers up to date, and are even more valuable
for young researchers who are entering this fast-paced,
interdisciplinary research area. A Sunday-afternoon workshop will
provide younger scholars with an opportunity to present their
work and discuss it with other conference participants.
Additional information is available from the conference web site
at http://www.math.uchicago.edu/zimmer60/